RCN-SEES: Coordinating Phosphorus Research to Create a Sustainable Food System

Steering Committee: James Elser, Rimjhim Aggarwal, and Helen Rowe at Arizona State University;
Tauhidur Rahman, University of Arizona; David Vaccari, Stephens Institute of Technology; Anita
Street, US Department of Energy; Robert Mikkelsen, International Plant Nutrition Institute

Intellectual Merit: Phosphorus (P) is an essential element to life and, with few exceptions, a necessary
fertilizer for high agricultural yield. Because P cannot be manufactured and global supply is limited,
this chemical element poses a unique, double-sided threat to sustainability. P scarcity leads to
high prices and poverty for poor farmers in developing countries, but in industrialized nations, excess
P from farms and in urban waste streams degrades downstream water quality. The issues surrounding
P sustainability are deeply complex and involve diverse geological, biogeochemical, economic, and
geopolitical dimensions that are currently unconsolidated. Environmental degradation due to nutrient
runoff and potential threats to global food security urgently call for an end to this disjointed approach
to phosphorus. The goal of the P Sustainability Research Coordination Network (RCN) is to spark an
interdisciplinary synthesis of data, perspectives, and understanding about phosphorus to identify and
implement solutions for P sustainability.

The RCN theme, objectives, and initial topics build upon broad agreement on key P sustainability
challenges reached at a recent Sustainable P Summit (SPS) led by James Elser and colleague Dan Childers.
The RCN will involve two phases centered on three Challenge Areas. Phase I groups will work
on two Challenges: (1) Improving P efficiency in food production; (2) Developing robust pathways
of P recycling. At the Kick-off Workshop, identified Core Members will develop Working Groups
centered around these challenge areas. These Groups will be further populated with At-Large Members
recruited through a widely advertised application process that will allow us to target qualified
graduate students, postdocs, and members of under-represented groups. In Year 3, a Synthesis Workshop
will report on the science and solution outcomes from Phase I and develop new Phase II Working
Groups focused on Challenge 3: Integrating efficiency and recycling to create a sustainable food system.
A Wrap-up Workshop, held early in Year 5, will be held to report on science and solution outcomes
from Phase II and provide the push to finalize outcomes.

Broader Impacts: Central to the P Sustainability RCN will be recruitment of a diverse network of
participants of different professions, ranks, genders, races, ethnicities, and nationalities. The Steering
Committee will reflect this diversity, including three students in ex officio capacity, giving them invaluable
experience in leadership, networking, collaborative science, and policy. To communicate key
aspects of RCN work, we will produce two dynamic, high-quality videos to reach targeted audiences of
farmers, educators, fertilizer industry, and policy makers. The three RCN Workshops will be held in
Washington DC in order to facilitate participation by policy makers, government officials, representatives
of agriculture and the fertilizer industry, and urban planners with the aim of developing research priorities
for the RCN, presenting outcomes and planning implementation of sustainability solutions.